SBIR Phase I: Quantum Propulsion

The broader impact/commercial potential of this SBIR project is to develop and commercialize a propellant-less electric vacuum thruster—a novel and cleaner method for object propulsion. This inventive thruster employs electronic components and sources to move objects, eliminating the need for traditional fuel. Successfully achieving these goals could potentially bring about a revolutionary transformation in the transportation industry. For example, a fully developed thruster could be used as a boost-on device for a wide range of current motors to increase efficiency (reduce energy consumption) while increasing range. Beyond developing the proposed thruster device into a usable product, this project also is expected to deepen the scientific understanding of its operational principles. All these enhancements hold the promise of enabling the device to move heavier objects with reduced energy consumption. Due to its suitability for use both on Earth and in space, a developed thruster product has the potential to improve the efficiency of all modes of transportation, including automobiles, boats, and spacecrafts.

This SBIR Phase I project proposes to develop and optimize the proposed electric thruster device, an exciting new way to move objects. Currently, objects and vehicles are moved using fuel-based propulsion technologies. This, coupled with the low efficiency of hydrocarbon and electric motor systems, is bad for the environment and not sustainable. This proposed product and technology platform presents a new type of cleaner propulsion technology. The proposed electric drive works by accelerating electrons between closely spaced electrodes in a capacitor using electric fields generated by a battery. The accelerated electrons form a Rindler horizon (Unruh Effect) behind the cathode of the capacitor which alter vacuum fluctuations within this zone. This modification creates a force that propels objects forward. The thruster device is expected to be cost-effective and lightweight, and initial experimental results appear promising. The project's goals are to (1) develop and improve a prototype using state-of-the-art materials and several design refinements, and (2) to confirm the technology's performance through third party validation. Demonstrating the thruster device's reliability and scalability is expected to provide a path to commercialization. Through development, optimization and validation, this project not only pushes the boundaries of propulsion through development of a usable product but also presents an exciting path as a platform technology with future potential for a wide range of practical, efficient, and environmental transportation solutions.